Instrumentation Laboratory Update Project

This project is updating the Electrical Technology Instrumentation Laboratory with computers, data acquisition hardware and software. The systems is being used in conjunction with existing laboratory facilities to improve the curriculum in methods of acquiring, analyzing, displaying and controlling typical process and experimental physical variables. This project is being matched by an amount equal to the award.